Isotopic Tracers of Particle Scavenging in a Hydrothermal Plume near the Rodriguez Triple Junction, Indian Ocean

The principal investigator will participate in a UK-funded research cruise to study a hydrothermal plume above the Central Indian Ridge immediately north of the Rodrigues Triple Junction in the Indian Ocean. Large-volume water samples will be collected for particulate and dissolved thorium isotope studies. Thorium will enable the quantification of rates of chemical processes occurring on particles within this hydrothermal plume. The study also will investigate the processes controlling the geochemical fractionation of 230Th and 231Pa.